Acquisition of Spread Spectrum Signals by Modified Correlation Loops

This research centers on developing a new class of delay estimation architectures that can align two pseudonoise (PN) code generators without resorting to serial search techniques. This is a significant deviation from conventional methods of PN code synchronization and promises to significantly reduce the complexity and improve the performance of these subsystems. The new architecture is constructed by inserting a filter between the local waveform generator and crosscorrelation multiplier of a conventional correlation loop. The produces a new class of control loops that can generate useful error signals over a much wider range of timing errors than conventional loops, such as delay locked loops and tau dither loops. The new device promises to be particularly effective at low signal to noise ratios and in hostile environments where conventional loops frequently loose lock and then re-acquire the signal. The goal of this research is to fully develop the proposed architecture, determine its performance in a wide variety of environments, and investigate the feasibility of implementing the devices with currently available technology. Potential applications include improved Global Positioning System receivers, enhanced code division multiple access (CDMA) radio networks (including mobile telephone CDMA systems), and improvements in a variety of military and commercial spread spectrum systems.